Cold Spring Harbor Laboratory Meeting on the Cell and Molecular Biology of Aplysia and Related Invertebrates, April 16 - 20, 1997, Cold Spring Harbor, New York

9603636 Grodzicker The mollusc Aplysia, and a number of other invertebrates, have proven extremely useful in studies of basic cellular neurobiology and the cellular basis of behavior and learning. This utility is due, at least in part, to the extraordinarily large size of its nervous system cells (some of which are almost a millimeter in diameter) and the ability to recognize these cells as unique individuals. This tremendous experimental advantage has allowed the investigation of individual cells, their patterns of interconnections, modulation of the strength of connections between cells, and the relationship between these cellular phenomena and behavior, learning and development. In 1988, Cold Spring Harbor sponsored the first meeting devoted to work on Aplysia. Because of the success of this meeting, we decided to convene at two to three- year intervals at the Cold Spring Harbor Laboratory and alternate there with the highly successful Meeting on the Drosophila. The fifth meeting in April, 1995, drew over ninety participants, and again was highly successful. The proposed 1997 meeting will continue to provide a format for discussing new methods and findings that have emerged in the cell and molecular biology of Aplysia. The Meeting will be concerned with different levels of analysis: synaptic transmission; ion channels and channel modulation; peptides and small molecule transmitters; cell imaging; circadian rhythms; neuronal circuitry and behavior, and learning. A trend that was begun in the last meeting was to include a variety of other model invertebrate systems, which can provide information complementary to that obtained with Aplysia. This very wellreceived change will be implemented further in the next meeting, by the inclusion, in each session of a number of speakers who work with model systems such as crayfish, leech, squid, Drosophila, Manduca and C. elegans. In addition, particular attention will be given to the inclusion of junior scientists and women scientists. About 150 participants from approximately 60 laboratories throughout the world are expected to attend.